U.S.-Venezuela Planning Visit: Security and Integrity of Web-Based Information, with Emphasis on Watermarking

This planning-visit award supported by the Americas Program of the Office of International Science and Engineering allows Dr. Ernst L. Leiss, University of Houston, to work with Dr. Jose L. Aquilar at the Universidad de los Andes to plan a joint project on security and integrity of web-based information, with emphasis on watermarking. Both Dr. Leiss and Dr. Aguilar have worked on parallel computing and on various aspects of the Internet. They are now poised to take on the problem of internet security, specifically the use of digital watermarking.

With these visits the PIs can decide how to take their conversations and past experiences to the next step of a full research project. One major purpose of the visits is to identify students who will work on the project. Providing students with an international research experience is one of the key objectives of the Americas Program.